NSF INCLUDES DDLP: Expanding Diversity in Energy and Environmental Sustainability through the creation of learning opportunities for minority students in the Mid-Atlantic region

This NSF INCLUDES Design and Development Launch Pilot, "Expanding Diversity in Energy and Environmental Sustainability (EDEES)", will develop a network of institutions in the United States mid-Atlantic region to recruit, train, and prepare a significant number of underrepresented, underserved, and underprivileged members of the American society in the areas of alternative energy generation and environmental sustainability. Researchers from Delaware State University (DSU) will lead the effort in collaboration with scientists and educators from the University of Delaware, Delaware Technical Community College, University of Maryland, and Stony Brook University. The program comprises a strong educational component in different aspects of green energy generation and environmental sciences including the development of a baccalaureate degree in Green Energy Engineering and the further growth of the recently established Renewable Energy Education Center at our University. The program comprises an active involvement of students from local K-12 institutions, including Delaware State University Early College High School. The character of the University as a Historically Black College (HBCU) and the relatively high minority population of the region will facilitate the completion of the goal to serve minority students. The program will also involve the local community and the private sector by promoting the idea of a green City of Dover, Delaware, in the years to come.

The goal of EDEES-INCLUDES pilot comprises the enrollment of at least twenty underrepresented minority students in majors related to green energy and environmental sustainability. It also entails the establishment of a baccalaureate degree in Green Energy Engineering at DSU. The program is expected to strengthen the pathway from two-year energy-related associate degree programs to four-year degrees by ensuring at least five students/year transfer to DSU in energy-related programs. The pilot is also expected to increase the number of high school graduates from underrepresented groups who choose to attend college in STEM majors. Based on previous experience and existing collaborations, the partner institutions expect to grow as an integrated research-educational network where students will be able to obtain expertise in the competitive field of green energy. The pilot program comprises a deep integration of education and research currently undergoing in the involved institutions. In collaboration with its partner institutions, DSU plans to consistently and systematically involve students from the K-12 system to nurture the future recruitment efforts of the network. A career in Green Energy Engineering is using and expanding up existing infrastructure and collaborations. The program will involve the local community through events, workshops and open discussions on energy related fields using social networks and other internet technology in order to promote energy literacy.